Research Experiences for Undergraduates (SITE) in Experimental Psychology

9322217 STERN This award provides funds to continue a Research Experiences for Undergraduates Site in Experimental Psychology at Pennsylvania State University. Eight undergraduate students will be selected to work as apprentices with faculty members who are nationally known for their research and highly experienced at preparing undergraduates for graduate school. Students will work full-time for eight weeks in the summer in various subareas of experimental psychology, including psychophysiology, emotions, perception, cognitive, and physiological psychology. They will design an independent research project during the latter part of the summer and complete it with the help of their Penn State mentor and "home" school memtor during the following academic year. At the end of the spring semester, they will present their research results at a Penn State department colloquium. Every effort will be made to encourage and assist students to gain admission to graduate school. This award contributes to the Foundation's continuing efforts to attract talented students into careers in science through active undergraduate research experiences. ***